Research Experiences for Undergraduates in Physics

This project is for the support of undergraduate student participation in ongoing research programs in the Division of Physics, Mathematics, and Astronomy. Participants have the opportunity to work with a faculty member or with a member of the Jet Propulsion Laboratory. Students will collaborate with the research sponsor to define and develop the project, to carry out the work, to submit a final written report, and to make an oral presentation of the research. This project is supported under the Program of Research Experiences for Undergraduates to help ensure an adequate supply of scientists for the future.